Stiffness Threshold in Network Glasses

9701289 Boolchand This is a renewal project to study the physical nature of the stiffness threshold in chalcogenide and chalcohalide glasses using Raman scattering, M ssbauer spectroscopy and T-Modulated Differential Scanning Calorimetry measurements (MDSC). Specifically, Raman mode frequency shifts and Lamb-M ssbauer factors will be measured systematically as a function of glass composition to establish the mean coordination number dependence of local elastic constant, C, and the first-inverse moment of the vibrational density of states, w-1. Random network model simulations of both C and w-1 in glasses are now available from numerical experiments, provide a convenient guide to compare with laboratory experiments. The nature of structural relaxation at the glass transition will be studied in MDSC measurements to establish the non-reversing heat-flow DHnr variation with composition. Preliminary experiments on chalcogenide glasses reveal that DHnr also displays a minimum at the stiffness threshold, c=2.4 suggesting that only minuscule enthalpy changes accompany structural relaxation of a glassy liquid when it is mechanically critical. Mean-field constraint counting procedures also reveal that for networks possessing terminal atoms such as one-fold coordinated atoms (halogens) the stiffness transition in general shifts to a lower mean coordination c < 2.4. These ideas will be put to a quantitative experimental test in suitable Raman, M ssbauer and MDSC experiments in chalcohalide glasses. %%% This is a renewal project to study the physical nature of the stiffness threshold in chalcogenide and chalcohalide glasses. Many glasses containing the elements S or Se or Te are viewed as networks composed of atomic-chain fragments (with a mean atomic coordination of 2). These chain-fragments can be progressively cross-linked by alloying other atoms. Mechanical ri gidity of such alloyed networks is found to increase progressively with degree of cross-linking as measured by the mean coordination number of a network. When the coordination reaches 2.4, theoretical calculations predict a floppy to rigid transition and stiffening of the network beyond 2.40. We propose to carry out an experimental study on specific glass systems to decode the physical nature of the underlying stiffness transition. This transition, which corresponds to a magic composition in a glass system, is of general interest in glass science because some of the best glass formers occur near this magic composition. Furthermore, an understanding of this transition will also help unravel the mysterious and elusive nature of structural arrest that occurs at the glass transition. Such information will also assist in tuning the glass composition for optical, thermal, electronic and mechanical applications. ***